Teachers' Domain Educational Standards Enhancement

This project is building on an earlier one that created the Teachers' Domain , a collection of rich-media resources for K to 12 teachers. The resources include five general media types: video, audio, interactive, image and document. Materials are available for the life sciences, physical science and engineering, and earth and space science. The project is relating state and national educational standards to the digital resources using a controlled vocabulary interfacing tool. The interface is benefiting K to 12 learners and educators by allowing teachers to find educational resources that support learning goals and standards, and their interconnections.